Next Generation Software: An Integrated Framework for Performance Engineering and Resource-Aware Compilation

EIA-9975019
Polychronopoulos, Constantine
University of Illinois-Urbana

Next Generation Software: An Integrated Framework for Performance Engineering and Resource-Aware Compilation

This proposal will perform research to develop systematic and synergistic approaches for developing an integrated performance engineering framework and resource aware compilation and run-time system, and they propose to perform this research in the context of testing, validation and demonstration of the developed these technologies on important applications, a vision application being a focal one in this proposal.

With respect to the performance engineering framework for complete distributed and parallel computing systems the efforts include modeling languages of hardware and software components for developing heterogeneous component models, means of combining these models to represent the hardware and software system and views of that system. To create such capabilities they will develop composition techniques that enable models to interact with each other, share state, events or results, and ability for scalable modeling.

The compiler and runtime support system will design resource-aware algorithms for program transformations, a multilingual resource-aware optimizing compiler, and low-overhead, adaptive run-time support to be generated by the compiler and embedded in user code. By using information about application internals and knowledge of the target architectures will develop techniques that will produce executable code that scales dynamically and is responsive to reconfigurations in the type and number of system resources.

The modeling, compilation and runtime techniques above will be synergistically combined to obtain an integrated compiler/runtime/performance engineering framework, and they will demonstrate the abilities of such a framework with applications like face-tracking, video filtering and indexing.